Doctoral Dissertation Research: Health Seeking Behavior of Rural Women in India with Sexual Diseases

9404823 BHARDWAJ Sexual diseases such as gonorrhea, syphilis, chlamydia, and herpes have received mounting worldwide attention due to the large number of people affected. In particular. AIDS, largely restricted earlier to homosexuals, is of great concern since it is spreading rapidly into heterosexual populations and presents an especially serious threat to women. In societies such as India, women are more susceptible than men to contracting sexual diseases since their access to information is limited by lack of education and ignorance about sexual practices and preventive measures. Unlike their counterparts in the western world who have sufficient access to information and medical services, rural women in India have insufficient knowledge about sexual diseases. Recognizing that spatial relations are gendered and that the geographic spaces of women differ in different places, this research project focuses on identifying those factors, especially those related to understanding the connection between context and gender roles, that affect the construction and use of social networks by rural Indian women who have a sexual disease. The study will involve samples of women from three districts in Haryana, India, taken over a nine month period. Personal interviews with infected women and health care providers will provide the empirical base for a statistical analysis which will define social networks and attempt to explain the structure, and variation in the structure, of those networks. This project will provide significant new insights into a very important problem facing developing countries. It will expand our understanding of both the delivery of medical services in developing areas and the role of patriarchy in shaping the way in which rural women seek and use medical help. Thus, this study will contribute to a richer theoretical understanding of medical geography, development studies, and gender as well as providing new perspectives of immediate practi cal importance in dealing with these growing medical problems. As a doctoral dissertation research improvement award, this project will also provide support to enable a promising student to establish a strong independent research career. ***